Microscopic Raman Spectroelectrochemical Measurements

This Minority Research Initiation Planning Grant, made in the Chemistry Division will allow Dr. Macklin to gather preliminary results and develop a research proposal dealing with the development of a technique for assay and chemical studies of aqueous biological substances by microscopic Raman electrochemical spectroscopy. The technique involves making micro-Raman measurements on extremely small quantities of biological materials adsorbed onto a microelectrode. The effect of variables such as solute concentration, electrode surface,electrode potential, electrode material, pH, and excitation intensity and frequency on Raman intensity will be studied. %%% This microchemical Raman spectrochemical technique could lead to the development of biosensors for the assay of extremely small concentrations of amino acids and small polypeptides,